Enhancement of the Laboratory Experience in Introductory Physics Courses through the Use of Computers

Physics is both an experimental and a theoretical science, involving an interplay between observed phenomena and their description in mathematical terms. Thus a substantial laboratory experience is an essential component in a proper study of and understanding of the discipline. Johnson C. Smith University will improve the quality of its undergraduate laboratory instruction in Physics by replacing outmoded equipment with personal computers. These, with appropriate interfacing devices, will be used as measuring instruments to collect data from the students' experiments, and also as tools for analyzing the data and presenting the results. The new laboratory program is expected to increase student interest, and thereby student confidence and competence, and to attract uncommitted students towards a career in the physical sciences and engineering.